Quest Atlantis: Advancing a Socially-Responsive, Meta-Game for Learning

his project continues work to build a multi-user virtual environment,
known as Quest Atlantis, that is academically valuable, game like, and
that engages elementary students in socially-responsive practices. This
grant will undertake a series of naturalistic studies and experimental
manipulations that will advance theoretical and practical knowledge with
respect to the design of multi-user virtual environments for supporting
science learning. Specifically, the project will test three hypotheses:
First, that students learning academic content within a
socially-responsive gaming context will learn more and be more engaged
than those learning through teaching methods that do not explicitly have
a gaming component. This portion of the study will also examine if the
gaming context works will work equally well if the academic tasks vary
in difficulty or if there is some necessary balance between the amount
of learning and playing. Second, participants, especially girls, will
achieve and learn more and be more engaged when their participation is
situated in a gender-balanced, socially-responsive gaming context as
opposed to a male-dominated one, or simply a gaming context without an
explicit social agenda. Third, students participating in a gaming
environment will achieve, learn and be more engaged if the environment
leverages a community-based element than if it just supports single-user
participation. The project will also produce qualitative accounts of
participation in all conditions, but especially the socially-responsive
gaming condition so as to understand how children from different
socio-economic groups and of different genders come to participate in
and make sense of the collective experience of the meta-game context.